Natality Factors Among Afro-Americans

This is a Minority Research Initiation (MRI) planning grant proposal. The objective of the proposed research is to determine if the attainment of middle-class status among Afro-American women reduces the influence of the effects of family and other institutional relationships on natality and reproductive behavior. Reviewer comments stated that this research will address questions and issues of great anthropological significance and societal concern. Planning grant funds will provide support for release time in order to allow the investigator to pursue various scholarly activities associated with the planning and development of a competitive research proposal for the MRI research initiation component. During the planning period the principal investigator plans to take courses in statistics, demography, and fertility in order to acquire a needed understanding of the technical tools with which population and natality studies are constructed.